Collaborative Research:Decadal to orbital links between climate, productivity, and denitrification on the Peru Margin; Do models of persistent EL Ni±o or La Nina conditions apply?

The proposal is funded to determine the connection among productivity, ventilation, and sea surface temperature climate variability at decadal to orbital time scales from the Peru Margin, a region sensitive to ENSO. Reconstruction will be based primarily on examining denitrification processes in existing very high resolution cores from the Peru Margin. The proposed will use the newly developed 14C dating technique using alkenones.